The Power of Productive Failure in Children's Learning and Hypothesis Testing

This project investigates how children develop a metacognitive understanding that failure can inform learning. When one strategy towards a goal fails, it is important to know the difference between persevering, practicing, and pivoting to accomplish goals. Learning of any skill requires children to develop understanding of adaptive persistence - understanding that failure could be a step on the path to success or could require revising one’s goals. This project tests the hypothesis that children’s developing metacognition (or ‘thinking about thinking’) plays a critical role in understanding the relations among effort, action, and outcomes. Understanding failure as a source of learning opportunities can contribute to children’s academic success and thriving.

This project uses three sets of studies with 5- to 10-year-old children to investigate understanding of adaptive persistence. The first set of studies uses behavioral experiments to examine development of the metacognitive understanding of the value of practice, and the circumstances under which practice leads to greater achievement across different domains, including athletic and academic endeavors. The second set of studies uses structured interviews to document how children talk about practice, persistence, and achievement to gain insight into the ways children think about the circumstances under which they choose to persist. The third set of studies examines children’s adaptive persistence when engaged in hypothesis testing while exploring a novel device towards understanding how different messages about exploration or persistence affect children’s learning when adaptive persistence is needed. Taken together, this project has potential to provide researchers and practitioners with insight into how children overcome challenges when learning new skills.